Connection of Olivet College to NSFNET

9522194 Poulson Olivet College requests support from NSF for connection of the campus networks to MichNet. MichNet is the midlevel network located in the north central United States. It will provide operations management and information services and it will give the college a 56KB connection to the Internet connection, a collection of interoperable networks that connect most research and education organizations in the United States. The College needs the Internet connection to be able to access information resources throughtout the state, the nation and the world. The connection will benefit the faculty, staff students of Olivet College.